Nonlinear Optical Effects in Cadmium Telluride/Cadmium Zinc Telluride Superlattices and Quantum Wells

In the past few years, very high quality CdTe/Cd(1-x)Zn(x)Te quantum wells (QW) and superlattices (SL) with x=0.08-0.15 have been grown on Cd(0.96)Zn(0.04)Te substrates at the Centre d'Etudes Nucleares (Grenoble, France), using molecular beam epitaxy (MBE). These structures have an unusual mixed band structure in which excitonic transitions are type I (spatially direct) for heavy holes (hh) and type II (spatially indirect) for light holes (lh). An exceptionally strong nonlinear effect has been observed in the absorption spectra of these materials at low temperature and the hh exciton absorption is found to be significantly reduced by very weak optical pumping above the band gap. This non-linearity is of cosiderable interest for possible applications. A comprehensive study of the effect in QWs and SLs is proposed, using time-resolved transmission spectroscopy on time scales from ps to ms. Uniaxial stress will be used to modify the relative energy position of the hh- and lh-excitons, and combined optical-infrared pumping to alter trap populations. The research will have three main objectives: (1) to establish the cause of the non-linearity and to set up a quantitative model of the process; (2) to find the conditions in which the nonlinearity is maximized, establish the optimum material and structure parameters for device applications, and (if feasible) make a working bistable optical switch; and (3) assuming that hole traps in the barrier layer are involved, to use the phenomenon as a probe of the trap states, thus obtaining information about the quality of the barrier material. %%% Modern communications systems use pulses of light travelling in glass fibers to transmit information. When the optical pulses are manipulated (for instance, in order to send them to a particular destination) they have to be converted into electrical pulses, amplified and routed, and then converted back to optical form for transmission to their destination. All such methods depend on the phenomenon of "optical nonlinearity": This proposal concerns a newly discovered nonlinear medium: a thin (10-40 nm) layer of cadmium telluride (commonly called a "quantum well") sandwiched between thicker layers of cadmium zinc telluride. the absorption of this medium has been found, in preliminary experiments at low temperature, to be strongly affected by a light intensity of a fraction of a watt per square centimeter, an intensity easily achievable with a conventional light bulb. This remarkable sensitivity was discovered in the course of a basic study of cadmium telluride quantum wells, in collaboration with a research group in Grenoble, France. The purpose of the proposed research is to elucidate the mechanism of this remarkable sensitivity, to design a medium optimizing the non-linearity, and to build an optical switch using this medium, which should require very low power to operate.